Supercomputer Time-Access for Research On: Internal Three-Dimensional Viscous Flows

Numerical calculations on a supercomputer are to be carried out to predict three-dimensional flow in a viscous mixing layer containing vorticity and shear arranged in a geometrically complex arrangement compared to that in two-dimensional flow. A multi-domain spectral code developed for other purposes is to be applied to this flow.